Oceanographic Technical Services, 2009 - 2011, R/V Point Sur

San Jose State University proposes to support technical services on R/V Point Sur, a 135’ general purpose UNOLS research vessel operated by the Moss Landing Marine Laboratories as part of the University-National Oceanographic Laboratory System research fleet. They request support for basic services and operation of a towed, undulating vehicle as specialized services. They will provide one technician on each seagoing research project of R/V Point Sur to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. The budget in this proposal is for the first year of a 3-year continuing grant.